Acquisition of a Thermal Ionization Mass Spectrometer

This award provides matching funds for the acquisition of a thermal ionization mass spectrometer to be installed and operated in the Department of Earth, Atmospheric and Planetary Sciences at the Massachusetts Institute of Technology. MIT is committed to providing the remaining funds needed for this acquisition. The spectrometer system will allow the earth crustal structure and tectonics research group at MIT to pursue geochronological and other isotope geochemical research projects aimed at understanding the evolution of the continental crust and lithosphere.